Research Initiation Award: Bridging the Gap between Sequence and Function with Ethical and Explainable AI for Protein Function Prediction

The Historically Black Colleges and Universities Undergraduate Program (HBCU-UP) through Research Initiation Awards (RIA) provide support for junior and mid-career faculty at Historically Black Colleges and Universities who are building new research programs or redirecting and rebuilding existing research programs. It is expected that the award will help to further the faculty member's research capability and effectiveness and improve research and teaching at the home institution. This award will address an important gap in tools available to predict protein function and thereby accelerate future drug and therapy discovery. Proteins are fundamental to nearly every biological process, yet the functions of most known protein sequences remain unknown because experimental characterization is time-consuming and costly. This project will develop ethical and explainable artificial intelligence methods to improve the prediction of protein functions, thereby improving the understanding of biological systems and accelerating discoveries in biotechnology, genomics, and biomedical research. By providing accurate, transparent, and accessible computational tools, the project will help scientists determine the functions of newly discovered proteins more quickly and support future advances in new therapies. The project will also strengthen the STEM workforce by engaging undergraduate students in interdisciplinary research, providing hands-on training in AI and computational biology, and conducting annual summer workshops that build research skills and prepare participants for graduate education and research careers. Openly available software, educational resources, and research findings will enable broad access to the project's outcomes and promote reproducible scientific research.

The project will develop advanced deep learning frameworks for protein function prediction by integrating protein sequence information, three-dimensional structural information, protein-protein interaction information, and protein-nucleic acid interaction information within ethical and explainable AI models. The research will investigate transformer models, graph neural networks, convolutional neural networks, and hybrid learning approaches to improve the mapping between protein sequences and their biological functions. Ethical considerations, explainability, transparency, and robustness will be incorporated throughout model development by evaluating feature importance, interpreting model decisions, and assessing model performance across benchmark datasets. The developed methods will be rigorously evaluated using publicly available benchmark datasets and through participation in the community-wide Critical Assessment of Functional Annotation Challenge. The project will disseminate open-source software, web-based computational tools, and educational materials to support the broader scientific community. The anticipated outcomes include improved computational methods for protein function prediction, broader access to open computational resources, expanded undergraduate research and workforce development opportunities, and scientific advances that support biological research, biotechnology, and biomedical discovery.